Influence of the Solar Cycle on the General Circulation of the Stratosphere and Troposphere

The PIs will investigate the influence of the solar cycle on the general circulation of the stratosphere and troposphere. Decadal variations operating coherently with the variation of the ultra-violet (UV) radiation will be investigated in long records of dynamical and chemical structure characterizing the circulations of the stratosphere and troposphere. Building on recent evidence, this investigation will examine the four-dimensional record of National Centers for Environmental Prediction (NCEP) reanalyses to isolate those months and locations, inclusive of the Southern Hemisphere, tropics and troposphere, for which interannual changes operate dependently with changes of ultra-violet (UV) irradiance. Contemporaneous changes of ozone will be investigated in records from station data and in the satellite record from total ozone mapping spectrometer instrument (TOMS). The work is important because it will enhance our understanding of solar-climate interactions.